Dissertation Research: Linking Lakes with the Landscape: The Fate of Terrestrial Organic Matter in Planktonic Food Webs

A key goal of ecology is to understand how ecosystems process materials and energy.
In this proposal, we focus on the energetic importance of terrestrially-derived dissolved
organic matter (DOM) for lake ecosystems. Using laboratory-based studies, we will
assess how terrestrial DOM quantity and quality influence the production and growth
efficiency of pelagic bacteria. These two processes ultimately dictate how much
terrestrial DOM enters lake food webs. We will then incorporate the laboratory data into
a simulation model that will predict conditions under which terrestrial DOM is likely to
be energetically important for higher trophic levels. We are particularly interested in
using the model to assess terrestrial carbon flow in lakes with contrasting food webs and
trophic states. Finally, we will test model predictions by examining the stable isotopic
signatures (delta 13 C) in zooplankton from a wide array of New England lakes. Results from
this study will clarify the energetic importance of spatially linked ecosystems and
broaden our understanding of how allochthonous inputs influence food web dynamics. In
addition, our studies will aid in decision-making regarding land use activities that modify
carbon export to lakes such as agriculture, shoreline development, forestry, and wetland
delineation.